Research Experiences for Undergraduates (REU) Site: Undergraduate Research in Computer Science and ComputationalPhysics

This project will involve 8 undergraduate students in the following areas of research being conducted at the departments of Physics and Computer and Information Science (CIS) of Syracuse University, the Honors Program, the Syracuse Center for Computational Science (SCCS), and the Northeast Parallel Architectures Center (NPAC): (1) parallel computing software and algorithms, (2) pattern recognition and computer vision, (3) neural networks, (4) computational condensed matter physics, (5) high Tc superconductivity, (6) nonlinear dynamics (chaos), and (7) computers in education. Five faculty and three postdoctoral research fellows will supervise REU participants and at least three of the eight participants will be selected from outside of Syracuse University.